Evolutionary Models of Young Jupiters and Hot Jupiters

The research to be conducted here centers around models for the structure and evolution
of giant planets which can be used to relate observations of giant exoplanets to
fundamental properties such as mass and radius. First, a modeling effort will be
undertaken to compute the thermal evolution of young giant planets over a range of
masses in a self-consistent way, i.e., coupled with core accretion models, rather than with
the arbitrary initial conditions currently used. From these models, both spectra and colors
will be calculated to allow for more accurate determinations of the masses of young
objects found orbiting other stars. A second project will explore recent revisions in the
equation of state for hydrogen to evaluate the corresponding changes in model radius. It
is suggested that this change leads to larger radii at a given age and that the wide spread
in radii seen among transiting extrasolar giant planets may be understood in terms of a
large range in interior heavy element abundances versus the need for internal energy
sources.
This work will improve the return of future space missions to locate extrasolar planets as
well as efforts from the ground by enabling more accurate determinations of basic
properties from observations. The models here will also serve as a stepping stone to the
eventual detection of Earth-like planets. The results of this work will be posted on the
SETI Institute website and disseminated to the public through articles in popular journals.